Source and Fate of Particles in Wastewater and Sludge Treatment Facilities

9312825 Dick This is an award to provide support for research, the objective of which is to determine the source and fate of fine particles emerging from wastewater and associated treatment processes as an initial step toward improved process design and operation to exercise control over these discharges. The investigator plans to develop procedures for tagging particles that enter the process and tracing their path through the various unit operations that comprise a wastewater treatment system. Techniques for tracking the particles that will be investigated include neutron activation, fluorescent marking, radiolabeling, elemental and chemical analyses, particle size measurement and microscopic examination. Results of this project are expected to provide a better understanding than now exists for the fate of fine particles that are present in wastewater and those produced during the treatment processes. This improved understanding in turn is expected to provide the basis for improvement of engineering design and operation of processes and systems for wastewater treatment and for managing the residual sludges derived from these treatment processes.